SGER: Resource Allocation in Spiders: Possible Gene X Environment Effects?

Rankin 9800767 Previous research into how environment influences resource allocation to foraging rely on the ability of the researcher to correctly classify an organism's behavior. These studies also rely on the assumption that rough measures of resources provided by caloric output and time allocation are accurate measures of allocation of limiting nutrients. By utilizing a trap-synthesizing organism, the PI can unambiguously classify the investment into foraging. Furthermore, based upon recent advances in my understanding of the nutritional ecology of the web, the PI now knows that some components of the web are limiting essential nutrients requiring budgeting by the individual organism in response to its environment. It is tantilizing that preliminary results indicate that such a vital function as allocation of a limiting resource might vary among the offpring of different individual females from a single population. Only by a more extensive test, using the offspring of many more females, can the possibility of a family x treatment interaction be proven or disproven.